Electronic Transport in Amorphous and Multilayered Metallic Thin Films

This research project is devoted to the study of the physical properties of amorphous and multilayered metallic alloys. The experimental techniques to be employed are resistivity measurements, especially low-temperature magneto-resistivity, and X-ray diffraction. The samples to be studied will be thin films prepared by magnetron sputtering. The research objectives are: 1) to test current theories of electron motion in disordered conductors; 2) to investigate the electron transport properties of compositionally modulated thin metallic films; 3) to increase the general understanding of electron scattering processes in solids.